Investigating the Kinematic History of the Kongur Shan Normal Fault System, Western Tibet

A first-order feature of the Tibetan Plateau is its triangular geometry on map view with its
north-south width increasing from ~500 km in the west to >1500 km in the east. This asymmetry
has been explained by either eastward extrusion of Tibet or partitioning of north-south shortening
in the Tian Shan and northern Tibet across the strong Tarim block. To quantify the role of lateral
extrusion in accommodating intracontinental deformation during the Indo-Asian collision, we
must know the timing and magnitude of slip along major Cenozoic strike-slip faults in Asia. This
goal may be achieved by examining the termination structures of the strike-slip faults where their
motion is transferred to dip-slip structures. In this proposal, we plan to investigate the temporal
and spatial evolution of one of such structures: the 220-km long, north-trending Kongur Shan
extensional system in the eastern Pamirs. In the lateral-extrusion model, the Kongur Shan
extensional system is the northern termination of the ~1000-km long right-slip Karakorum fault,
which is thought to have assisted Tibet to extrude hundreds of kilometers eastward. Because the
southern end of the Kongur Shan system is assumed to link with the right-slip Karakorum fault,
the extrusion model requires that the extensional system has progressively lengthened northward
and its total magnitude of extension decreases from south to north. Alternatively, the oroclinal-bending
model suggests that the development of the north-trending Kongur Shan system may
have been related to pure bending of the Pamir-Nanga Parbat syntaxis system during Cenozoic
northward indentation of the Pamir promontory. This hypothesis not only explains coeval east-west
extension in the Pamirs and east-west contraction in the Nanga Parbat region in the western
Himalayan orogen, but also predicts specifically that the Kongur Shan extensional system should
have lengthened progressively southward and its total magnitude of extension decreases along
strike to the south. The distinctive predictions regarding the extensional-magnitude distribution
and propagation direction of the Kongur Shan extensional system by the two competing models
form the basis of this proposal. We plan to conduct field mapping across the extensional system
in four different transects, each is about 20-40 km wide, which will allow us to construct a series
of cross sections for estimating the magnitude of extension along individual segment of the
system. Field mapping will focus on the question of whether the Kongur Shan extensional
system is actually linked with the Karakorum fault. We will integrate field mapping with
thermobarometric, 40 Ar/39 Ar thermochronologic, and U-Th-Pb ion-microprobe geochronologic
analyses to constrain the P-T-t paths for both the hangingwall and footwall of the extensional
system. The results of this study will provide two important constraints on the tectonics of the
western Himalayan orogen: (1) the timing and magnitude of eastward extrusion of Tibet, and (2)
the dynamic cause for the initiation and development of coeval east-west extension and
contraction in the western syntaxis system.